A Comparison of the Common Core of Science, Math and Engin. Competencies Required for Employment in Technology Based Business and Industry...

9355757 Diesen The research team proposes to examine the compentencies that are necessary for people entering technology-based industry and map those skills with relevant two-year curricula, with the skills that students actually possess (as percieved by their employers), and with the skills demanded by industry